Early Paleozoic Tectonism in the Himalaya

0105339
Gehrels

The Himalaya has received intensive study as if is an active continent - continent collision, and many parameters such as amount of shortening, rates and subducted material measured in the Himalaya have been used in developing general models for continent - continent collisions. Recent results indicate that some of the shortening in the Himalaya may be due to an older event. This project aims to investigate this pre-Himalayan deformation and separate it from the tertiary collision of India with Asia, generally considered to be the Himalayan orogen. Results are expected to refine or correct important aspects of the deformation history of this important system that will have widespread application.